On Some Analytic Problems Connected to the Relative Trace Formula

The project is in the realm of Number Theory. More specifically, it is in
the area of automorphic forms and representation theory.
The most ambitious enterprise in automorphic forms is the
Langlands program,
and, especially, the issue of functorial lifting.
Loosely speaking, it postulates the formation of automorphic forms on
a bigger group from those on a smaller group.
This bounds together some of the most outstanding open problems in Number
Theory, such as the Artin's Conjecture
and the Ramanujan Hypothesis.
So far, the advance in the Langlands program was accomplished along
three major themes which are inter-related: explicit constructions of
automorphic forms
(e.g. using theta-kernels or Fourier coefficients of residues of
Eisenstein series), the theory of L-functions combined with
converse theorems, and the trace formula in its various guises.
The focus in this project is on the trace formula approach.
All trace formulas have their origin in expressing the kernel function
in two different ways -- geometrically and spectrally.
The application to functoriality comes about
when trace formulas of two different groups are compared.
The project deals with analytical aspects of the spectral expansion
of a trace formula for {\em symmetric spaces} (also called a
relative trace formula), inaugurated by Jacquet.
This is a major step in establishing functoriality in such instances
as quadratic base change, and characterizing cusp forms having
a non-zero period integral over certain period subgroups.
The project has 3 parts and it is a collaboration with
Jonathan Rogawski from UCLA (first 2 parts), and
Steve Rallis and Herve Jacquet (third part).

The project is a basic research in the realm of Number Theory.
The more specific area is called
automorphic forms and representation theory.
The most ambitious enterprise in this field is the
Langlands program.
In a nutshell, the goal is to establish relationships between
various objects which "live" on completely different worlds,
and seemingly have little in common.
Such relations are extremely deep.
A spectacular and relatively recent example is a correspondence between
modular forms and elliptic curves, which was
a keystone in Wiles' proof of Fermat's Last Theorem.
Roughly speaking, an elliptic curve is a "doughnut"
which is described as the locus of two equations
of degree 3 in 4 variables.
A modular form on the other hand can be thought of,
in the simplest cases, as
a sequence which is obtained by assigning to each integer
the sum of all its divisors (or powers of them).
Beside their inherent significance in many branches of mathematics,
modular forms and their related objects have found applications
in physics, cryptography and communication systems.